Approximations of Functions from Scattered Data: Theory and Applications

This proposer is particularly interested in representing and analyzing scattered data both on n-dimensional space and on certain compact manifolds such as the
m-dimensional sphere by positive definite and related functions. There are now
several results related to approximation by positive definite (and related)
functions on compact manifolds for which there are no known analogues on
n-dimensional Euclidean space for scattered points. For example,
quasi-interpolation approximation methods, Marcinkiewicz-Zygmund inequalities
leading to quadrature formulas associated with scattered points,
some approximation rate estimates for multilevel approximation methods and many other results known to be true on spheres do not have good counterparts on
n-dimensional Euclidean space. Establishing some corresponding results on
these spaces with the idea of better understanding the
approximation potential of positive definite functions and their applications is of special interest to us. In addition, we wish to address some of the
inadequacies of radial basis function (RBF) approximation applicable to all
manifolds; namely, the limitations of the "native space" theory for RBF's in
terms of convergence of interpolants, and questions concerning the ability of
globally supported RBF's to approximate locally. In addition, the proposer
wishes to investigate certain questions about constrained approximation.

A major goal of our proposed research is to develop better methods to both
represent and analyze data obtained from scattered sites located either in
space or from sphere-like objects. For example, imagine temperature readings
obtained at scattered sites over a particular region of the earth. One aim is to obtain temperature readings (or smog density readings, ozone readings etc.)
over the the entire region by creating an appropriate model(function). Such a
model makes "predictive" readings at unsampled sites possible. Also taking an
increasing number of samples over a given region should yield a "better" model
to the underlying phenomena. We propose the study of such questions from a
mathematical point of view. We note that better understanding of the
representation and analysis of data would have potential benefits to
meteorology, oceanography and satellite-based systems such as the Global
Positioning System (GPS).